Synthesis and Study of Some Theoretically Interesting Molecules

9314865 Borden The focus of this research is the investigation of the physical and chemical properties of pyramidalized alkenes. Gas-phase measurements on the radical anions of the most highly pyramidalized alkenes will provide values for singlet-triplet energy spearations and heats of hydrogenation. Separate computational studies will be conducted on strained olefins, carbenes, potential surfaces for organic reactions, fluorine substituent effects, radicals, diradicals, effects of substituents and heteroatom substitution on open-shell molecules, and determining which computational methodologies are most appropriate for performing calculations on different types of open-shell systems. With this Renewal award, the Synthetic Organic Program is supporting the research of Dr. Weston T. Borden of the Department of Chemistry at the University of Washington. Professor Borden will focus his work on the experimental and computational studies of highly strained carbon-containing molecules. His work provides an insight into the limits of bonding possible for carbon. ***